CONFERENCE: Digital Childhood: An Agenda on Human Development and Technology, October 23, 2000, National Press Club, Washington, DC

The last decade has seen an explosion in the introduction and use of interactive media. Yet, little is known about the impact of such media on child development. The American Psychological Association (APA), the National Communication Association (NCA), and the Society for Research on Child Development (SRCD) have developed a partnership to set a collaborative research agenda on the effects of interactive media on child development. This conference will bring together scholars, funders, policy-makers, and members of the press to hear about what is already known and to discuss future research needs.